RIA: Improving Cache Performance in Scientific Applications

This project explores approaches for automatically restructuring code to improve the performance of cache memories for scientific applications. Specifically, the project examines experimentally the following techniques: (1) loop optimization guided by a new performance metric that includes the effects of cache performance and floating-point computation on execution speed, (2) the enhancement of cache line replacement algorithms by using compiler generated knowledge of future reference patterns, and (3) the use of compiler generated cache hit and miss information by the instruction scheduler to hide latency on architectures having non-blocking caches. Each of these methods is implemented in an experimental compiler and evaluated on advanced microprocessors. The success of the project represents a significant step towards achieving fully automatic memory hierarchy management.